Film Casting of Multilayer Polymeric Films

ABSTRACT CTS-9315671 University of Maine P. I.: Albert Co Experimental work will be undertaken to obtain steady-state features of the multilayer film casting process as functions of films configurations, fluid rheological properties and operating variables. Instabilities in multilayer flows will also be studied experimentally, examining the onset of draw resonance and the characteristics of finite-amplitude disturbances in terms of film configurations, fluid rheological properties and operating variables.